Philadelphia Science Resource Leaders for the Middle Grades

This proposal provides a plan for the enhancement of the scientific skills of outstanding middle school teachers of grades 7 and 8 in physical science. These teachers will later assist in improving the teaching practices of their less experienced colleagues through the development of Science Teacher Leaders Resource Teams. Direct participation will involve 182 middle school teachers. A major objective of the project is to provide staff development for science resource teachers that includes sequenced courses on key scientific concepts, principles, and ways of thinking; directed research in scientific problem-solving; and classroom practice in science, especially content-based inquiry science. Cost sharing is equivalent to 22% of the NSF award.